HCC:Medium: Collaborative Research: Effective Communication with Robotic Assistants for the Elderly: Integrating Speech, Vision and Haptics

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The purpose of this study is to develop a communication interface that
will enable older people to effectively communicate with robotic
assistants, allowing them in this way to remain living safely in their
homes. The proposed communication interface will be: (1) multimodal,
that is supporting spoken, gestural and physical interactions, as all
these typically occur simultaneously when people communicate with one
another, and (2) adaptive so that the robotic assistant will adjust to
the older person rather than the older person to the robotic
assistant. The combination of speech, gestures and physical
interactions (haptics) has received only limited attention, but it
will be critical for successful deployment of assistive robots for
many elderly individuals. The transformative component of this
research is to view haptics as one of the drivers of the dialogue
between the user and the robot, and to study its relation to speech
and gestures through language processing methods. To adapt to each
user, the interpretation of the speech, gestures and haptic signals
will be performed by means of RISq (Recognition by Indexing and
Sequencing), a novel, adaptive and reliable recognition
methodology. Finally, a formal and modular control design methodology
will be developed, that guarantees that the robot responds safely and
reliably to the interpretation of the user intent provided by dialogue
processing.

Robot assistive technology holds immense promise for the
future. Supporting the independent functioning of older people so that
they can safely remain living in the community is of paramount
importance, especially since the world's population is aging at an
ever increasing pace. However, one of the main obstacles to the
widespread use of robot assistants is the lack of interfaces that are
easy to use for the elderly and allow the robot to be used in complex
real-world environments such as a typical apartment. The proposed
research aims to develop new tools that will enable robot developers
to fill this void. The research could also have significant
implications for the delivery of institutionally based health
care. The deployment of robots to assist nursing personnel in
hospitals and long-term care facilities, as well as at home, has
enormous implications for improved health outcomes and quality of life
for older patients while minimizing costs of care. Furthermore, the
reduction of the nursing workload by such robot assistants promises to
alleviate the critical shortage of nursing personnel in the USA that
is only expected to worsen.